Integrating New Visions in Environmental Sciences and Technology (INVEST)

Project INVEST (Integrating New Visions in Environmental Sciences and Technology year comprehensive ATE project encompassing curriculum development, faculty enhancement and instrumentation and laboratory improvement. This project provides an opportunity to address two different, but equally important postsecondary education issues. The first is the lack of educational opportunities available to environmental technicians in advanced technologies. A second, but equally important issue, is the lack of environmental education available to students at the secondary and postsecondary level of studies. Curriculum activities will include development of: (1) a curriculum course in X-Ray Fluorescence Analysis of Lead Based Paint and Building Materials; (2) stand-alone laboratory experiments in analysis of lead in drinking water, GIS applications in environmental assessment and remediation, and gas chromatograph/mass spectrometer sugar analysis identification of viable airborne organisms; and (3) environmental applications for integration into math, science, and technology. Opportunities for faculty enhancement will be provided through internships with industrial partners, as well as participation in conferences and workshops. A curriculum work group, composed of project part (industry, secondary and postsecondary educators) will facilitate a comprehensive approach to materials development and sharing of expertise. A one-week faculty training institute will be held in the second year of the project to disseminate course materials and train instructor technologies. A variety of activities designed to increase career awareness in secondary and postsecondary minority student populations are planned for both years of the grant.